CAREER: Novel Multiresolution Time-Domain Schemes for the Adaptive Analysis and Design of High-Frequency Circuits and Packaging Structures

9984761
Tentzeris

The educational objectives will focus on the implementation of new educational approaches that emphasize the interrelation of circuit and electromagnetic parameters and help develop a broader perspective of the High-frequency
analysis and design. These approaches will take advantage of the multidisciplinary use of Multiresolution Analysis and will emphasize to students early in their careers that engineering decisions and designs must take into account both the overall system performance and the computational cost.

The interaction with industry will play a significant role in this effort through the extensive undergraduate and PhD co-op programs and the support of new outreach programs for encouraging research careers of undergraduates in High-frequency and Wireless Communication design.
***